Robust Codes for Space-Time Communication, Iterative Decoding, and Multi-Rate Broadcast

The primary goal of this research is to produce practical codes that provide
unequaled robustness, approaching the performance predicted by compound
channel information theory for linear Gaussian channels. The resulting
channel codes will find application in many scenarios including wired and
wireless broadcast, wireless local area networks, asymmetric digital
subscriber lines, military anti-jam communications, and frequency hopped
communications.

Results from compound channel information theory state that a single code
exists that supports communication over every channel that has a mutual
information above the information rate of the code. Thus, once the
transmitter power spectrum is fixed, a code need not be specialized to a
particular frequency selective channel in a single antenna system or a
particular space-time path-gain matrix in a multiple antenna system. While
this theoretical result is more that thirty years old, practical code design
has focused to date on a weaker notion of robustness, that of average
performance according to a statistical channel model, such as Rayleigh
fading. The power of the code design approach taken in this
research is that the code design is independent of statistical assumptions
about the channel. The code simply works on every channel that it possibly
could.

A second goal of this research is to develop codes that support multiple
rates to different users. Here again, information theory (this time
information theory for degraded broadcast channels) lays out the limits of
performance. Our research will closely approach these performance limits by
applying turbo codes to the concept of superposition coding for the degraded
broadcast channel.